Gordon Research Conference: Complex Ceramic Microstructures: Properties by Design, Meriden, NH, August 4-9, 1996

9627274 Wilkinson The proposed conference is on the fundamental science that will enable materials with predetermined properties to be designed from a quantitative understanding of the relationship between microstructure and properties. The conference format involves primarily invited speakers with approximately one-half of each session devoted to an in-depth discussion. In addition, a poster session will be held that will enable other attendees to present their work. %%% The proposed conference is on the fundamental science that will enable materials with predetermined properties to be designed from a quantitative understanding of the relationship between microstructure and properties. The conference format involves primarily invited speakers with approximately one-half of each session devoted to an in-depth discussion. In addition, a poster session will be held that will enable other attendees to present their work. ***